ITR: Collaborative Research - \(ASE\) - \(DMC\): DDDAS: A Novel Grid Architecture Integrating Real-Time Data and Intervention During Image Guided Therapy

The project's research involves development and deployment of an integrated and practical grid
architecture for data driven intra-operative volumetric simulation of brain deformation during
image guided therapy (IGT) and specifically for image guided neurosurgery (IGNS) to be
employed in the operating room of the future. Preliminary work has resulted in a prototype
dynamic data driven system, which resides locally in the operating room for IGNS that integrates
data acquisition, surgical navigation, quantitative monitoring and enhanced real-time control. The
proposed project will enable improvement in the safety and efficacy of brain tumor resection by
extending the current system with a tightly coupled capability for interactively steered and
adaptive data driven simulation of the dynamically shifting shape of the brain. Such simulation
capability, integrated with real-time intra-operative data acquisition capability and real-time
surgical resection, requires on-demand low latency fault tolerant robust and reliable access to
remotely located significant compute capacity and data management resources from the operating
room. Recent advances in grid infrastructure hold out the promise to pioneer such capability. The
overall objective of this projectl is the development of a novel grid architecture integrating real-
time data to allow intra-operative surgical decision-making and navigation during IGT. In
addition this will provide database infrastructure for post-surgical analysis and modeling of data
and image repositories. The project's information technology (IT) research is expected to have
broad impact on clinical practice within a period of a few years.